Chemical Ecology of Swallowtail Butterflies

The long-term goal of this research is to discover how chemical
similarities and differences among plants have influenced associations
between plants and the insects that feed on them. Most plant-feeding
insects are specialists, feeding and laying their eggs on only a few plant
species. They find and identify their particular food plants largely by
smelling characteristic odors produced by the plants or by tasting
characteristic mixtures of chemical compounds in the plant tissues or on
the plant surfaces. Indeed, plant species that are attacked by a
particular species of insect typically share one or more kinds of unusual
chemical compounds. This suggests that the ability of insects to add new
plant species to their diet is facilitated by the shared occurrence of
particular compounds.
The swallowtail butterflies (family Papilionidae) are used as a
model system in this research because their classification and larval food
plants are especially well known. During the next three years, the PIs plan to
concentrate on the black swallowtail (Papilio polyxenes) and to determine
why females of this species almost never lay their eggs on plants outside
the carrot family (Apiaceae) and yet accept a wide range of different
species within this family. At least in part, females identify plants on
which to lay their eggs by detecting stimulant compounds with taste
receptors on their feet and by odor receptors in their antennae. Several
of these stimulant compounds have already been identified. The PIs will
complete the identification of these stimulants for the black swallowtail
in three common host species, namely carrot, wild parsnip, and poison
hemlock. The PIs will then determine whether the mixtures of stimulants share
compounds in common or whether each plant is recognized by a different set
of stimulant compounds. Preferences of individual black swallowtail
females among the three food-plant species will be compared with
preferences for stimulant extracts to determine whether these are primarily
responsible for host preference among different species. The PIs will measure
variation in the preferences of individual females and raise their progeny
so that the PIs can compare the corresponding preferences of their female
offspring. These experiments will tell us whether variation among females
results, at least in part, from inherited differences in responses to
chemical cues.
Despite recent progress, mostly in Europe and Japan, remarkably
little is known of the chemical mixtures by which insects recognize their
host plants, let alone of the genetics underlying the relevant sensory
mechanisms. This research should contribute to the basic knowledge
required for the wise deployment of new crop varieties whose chemistry has
been modified by genetic engineering.